RUI: Electronic Properties of Amorphous Hydrogenated Silicon-Carbon Alloys

This research involves the investigation of amorphous hydrogenated silicon-carbon alloys by a combination of junction capacitance techniques. The intention is to study the detailed energy map of amorphous hydrogenated silicon-carbon films deep defect density-of-states (DOS) over a significant portion of the mobility gap. Photocapacitance spectrocopy will provide an accurate energy map of deep defects to a depth of 1.1 eV below the mobility edge. A series of high quality samples will be prepared by Shing of the Jet Propulsion Laboratory employing a Glasstech PECVD system. The research will involve undergraduates in every aspect of the proposed study. Initial measurements will involve capacitance-temperature measurements. This work will aid in the development of optoelectronic devices such as photovoltaic cells.